Project CAUSE (Computer Assisted Undergraduate Science Education)

Through this project, the university is equipping a 20-workstation microcomputer-assisted data accumulation and analysis laboratory. The instrumentation is being used in Principles of Chemistry, a course designed for chemistry majors and other students who require a rigorous introductory class in general chemistry. Each workstation consists of a microcomputer equipped with a variety of data accumulating probes and supporting hardware. The equipment is durable, easy to use and highly suitable for undergraduate level courses. The use of computer-interfaced probes allows rapid, accurate data accumulation, which in turn allows more time to be spent on data interpretation. The instrumentation also is capable of running several different experiments simultaneously or consecutively. The data storage system and versatile software analyze and conveniently sort files, and a hard copy can be produced that is relevant to a particular concept or cluster of concepts. These qualities make the instrumentation highly applicable to real-time data interpretation. The instrumentation is in keeping with the goal of exposing students to instruments with computer-assisted capabilities throughout the curriculum, thereby better preparing the student for graduate school and a work place that is increasingly dependent upon such technologies. Some 400 students (chemistry, biology, and other majors) could benefit from the project over the 5-year period.